Purchase of Plant Growth Chambers for Plant Biologists at Cornell University

Four plant growth chambers will be acquired to promote research in the areas of plant physiology, plant molecular biology, and plant biophysics. Specific projects will investigate: 1) developmental physiology in plants; 2) photosynthate partitioning and transmembrane transport; 3) molecular genetics of chloroplast coupling factor; 4) transfer cells and phloem loading; and 5) biophysical aspects of photosynthesis.